Low-Spurious Data Conversion for digital RF Systems

In wireless systems, performing IF filtering/demodulation digitally has many advantages. The software radio environment makes it possible to implement diverse wireless standards on a single hardware platform. Since non-linear quantization causes interchannel mixing, this application demands a premium ADC performance in spurious-free dynamic range of at least 80 to 90dB. This highly- linear data conversion at IF requires ADC performance typically of 14 bits at above 50MSample/s. Although remarkable progresses have been reported, it is unlikely to achieve this high sampling rate with 14 bits using any known CMOS architectures. This research challenges the current ADC arts with two unique methods. Multi- step ADCs are very linear but limited by the speed of the interstage residue amplifier. On the other hand, folding ADCs are fast but limited by folding amplifier offsets and their complexity to achieve more than 10 bits. This research presents two unique solutions. One is to use a trans-resistance amplifier for fast residue amplification, and the other is to use a subranging concept to cascade folding stages. Linearities in both cases are calibrated in background using an oversampling delta-sigma calibrator. This work is the first one that ever attempts to calibrate the folding ADC.